2006 Barrett Lectures in Topology

he 2006 Barrett Lectures is a conference in geometric topology which
will take place at the University of Tennessee in Knoxville, April 29-May
1, 2006. The proposal is for partial support of this conference.

The 2006 Barrett Lectures is a conference on a core area of mathematics,
which will bring together researchers from across the country in order to
disseminate scientific knowledge and encourage collaboration. In
particular, the conference will help young researchers gain the experience
they need to initiate a solid research program. The requested funding will
be used to cover travel expenses for graduate students and new Ph.D.s.
More information can be found on the conference homepage
http://www.math.utk.edu/barrett/